Equilibrium and Nonequilibrium Signatures of the Quark Gluon Plasma at High Temperature and Density

The new generation of ultrarelativistic heavy ion colliders, RHIC at Brookhaven and LHC at CERN
will open a window to the Early Universe when it was one microsecond old. In these experiments
a new state of matter-the quark gluon plasma- will be formed. This state prevailed when the
Universe was younger than a microsecond with temperatures larger than 1012 K. This novel state
is also conjectured to exist at the core of the densest stars in the Universe-neutron stars- and to be
the primary constituent of hypothetical quark stars. The density in these astrophysical objects is
about 1015gr/cc, these stars are the remnant of the most powerful events in the present Universesupernovae
explosions. The properties of neutron stars and the existence of quark stars is currently
being studied by a host of satellite missions: HST, Rosat, Chandra, XMM-Newton and forthcoming
neutrino telescopes.
Assessing potential observables and experimental signatures of the quark gluon plasma requires
studying the strong interactions in an unprecedented regime of temperatures and densities. Furthermore,
in ultrarelativistic heavy ion collisions the quark gluon plasma is expected to be a transient
state with an unprecedented short lifetime of the order of 10-22 seconds, undergoing a phase transition
to a phase in which quarks and gluons are con.ned inside hadrons. Thus the challenge is to
extract observational signatures fromthe short-lived and rapidly evolving plasma. The focus and
goal of this proposal is to implement the methods that we developed during the last several years
to study equilibriumand non-equilibriumexp erimental signatures of the quark gluon plasma and
the phase transitions in ultrarelativistic heavy ion collisions and in compact stars. In particular
we focus on: i) electromagnetic signatures (photons and lepton pairs), ii) transport phenomena
and properties of .uctuations as potential observables of the phase transitions, iii) astrophysical
processes that lead to observational signals of quark matter in strongly magnetized neutron stars
and quark stars: photon and neutrino emissions.
Intellectual challenge: This is a truly interdisciplinary programat the forefront of nuclear
and particle physics and astrophysics and cosmology. Many of the methods, in particular transport
phenomena strongly out of equilibrium also overlaps with timely problems in condensed matter
physics: femtosecond relaxation in semiconductors. Thus we expect that the program will also
have a broad impact in many areas. The possibility of opening a window to the Early Universe
with earth-bound accelerators and studying the densest stars, the remnants of the most energetic
events in the Universe-Supernovae explosions-is clearly one of the most fascinating endeavors.
Broad interest: The appeal of studying the Early Universe and some of the most exotic
objects in the present Universe goes beyond the scientists working in these areas, and reaches to
the broad audience. The general public is fascinated about the latest discoveries in cosmology and
particle physics, and eager to listen and learn more. The symbiosis between cosmology, astrophysics
and nuclear and particle physics lends itself to being an e.ective vehicle to transmit the new and
fascinating discoveries and to highlight the importance of the di.erent areas to unravel the ultimate
mysteries of the Universe.
The projects described in this proposal are a continuation of the research done under the
previous Grant: N.S.F. PHY-9988720 (5/31/00-5/31/03) and is estimated for a period of three
years.